CPS: Synergy: Collaborative Research: Hybrid Control Tools for Power Management and Optimization in Cyber-Physical Systems

This project explores balancing performance considerations and power consumption in cyber-physical systems, through algorithms that switch among different modes of operation (e.g., low-power/high-power, on/off, or mobile/static) in response to environmental conditions. The main theoretical contribution is a computational, hybrid optimal control framework that is connected to a number of relevant target applications where physical modeling, control design, and software architectures all constitute important components. The fundamental research in this program advances state-of-the-art along four different dimensions, namely (1) real-time, hybrid optimal control algorithms for power management, (2) power-management in mobile sensor networks, (3) distributed power-aware architectures for infrastructure management, and (4) power-management in embedded multi-core processors.

The expected outcome, which is to enable low-power devices to be deployed in a more effective manner, has implications on a number of application domains, including distributed sensor and communication networks, and intelligent and efficient buildings. The team represents both a research university (Georgia Institute of Technology) and an undergraduate teaching university (York College of Pennsylvania) in order to ensure that the educational components are far-reaching and cut across traditional educational boundaries. The project involves novel, inductive-based learning modules, where graduate students team with undergraduate researchers.